Microcomputer Technology for Strengthening Life Science Instruction for Deaf and Hearing Students

The main objectives of the project follow two themes: 1) the collection and assessment of several hundred life science microcomputer software programs for use by hearing impaired students, including examination of the differences and similarities between hearing and hearing impaired students using the same programs 2) the dissemination of information about the results of these assessments. These objectives are closely associated with the objective of increasing the population of qualified hearing impaired people going into the field of science. By encouraging the use of microcomputers in the life of sciences, students in the 1000 deaf institutions/programs will benefit from the use of good quality software. The project will use as subjects and evaluators hearing impaired students and professional working with these students. The assessments will be made at Gallaudet University, selected schools for the deaf and some mainstreamed hearing impaired programs. The assessment will not only select the best programs for the hearing impaired but it will determine if the results may be generalized from the deaf to the hearing population. As data is gathered on these assessments, a wide dissemination effort will provide information to the science education community on preferred software programs for both the hearing impaired and the hearing population.